INNOVATION

The Educational Broadcasting Corporation (WNET in New York) is developing and producing a new public television project exploring cutting-edge technology. The project consists of an eight-part hourly broadcast component; six 60-second "mini-programs;" a World Wide Web component; and extensive educational outreach targeted to adults aged 25-39 and older. The topics for the eight programs in season one are:

Replacements - prosthetic devices and biologically electronic artificial body parts
In Search of Eve - the race to decode the human genome
Light of the 21st Century - Fiber Optics
Nanotechnology - molecular manipulation of materials
Technospy - technologies used to gain information
Sports Technology - the pursuit of better equipment and training regimes
Artificial Intelligence - efforts to create computers the mimic human intelligence
Appropriate Technologies - technologies that use local, inexpensive material

Beth Hoppe, WNET's Director of Science Programs will serve as Executive Producer for the series. Each of the programs would be produced by an independent producer selected by WNET. Content advisors include: Angela Christiano, Departments of Dermatology, Genetics and Development, Columbia University; Sheila Sen Jasanoff, Harvard University JFK School of Government; Horace Freeland Judson, Center for History of Recent Science, George Washington University; Michio Kaku, theoretical physicist, CUNY and host, Explorations radio series; Wilfred Pinfold, Microprocessor Research Labs, Intel Corp.; and Barbara Wilson, chief technologist, NASA's Jet Propulsion Laboratory